Space Weather: Observations and Modeling of the Space Weather Effects of Magnetospheric Convection

This project will utilize data from the Geotail and Wind satellites to characterize the state of the Earth's plasma sheet during different geomagnetic conditions. It will examine the differences seen during periods of steady magnetospheric convection (SMC), magnetic substorms and magnetic storms. Additional data will be obtained from the Cluster satellite mission, in particular using the wide band plasma wave data and the electron drift (EDI) data. Additional data sets will include ground magnetometer data and geomagnetic indices as well as data from the ACE and WIND spacecraft specifying the conditions in the solar wind (interplanetary magnetic field and the solar wind speed and dynamic pressure).